SGER: Learning through Observing and Pitching In to Community Activities

This project aims to advance understanding of how people learn in communities where schooling has not been prevalent Most research on learning has been done with people who have extensive experience in Western schooling, which is often organized with a recognizable structure. Many scholars had practitioners have turned to informal learning as a model for how to develop a broader understanding of learning and to improve instruction.

The ultimate goal of this work is to advance understanding of how indigenous-heritage communities' ways of learning about scientific ideas with the expectation that findings and outcomes from this type of research may eventually inform STEM formal and informal learning.